Dissertation Research: Examining the Effects of Large Scale Migration on Local Population and Community Dynamics in Larval Odonates

Large scale movement patterns can influence the spatio-temporal occurrence of
size-structure within and between populations but few studies explicitly address how
these patterns affect interactions such as cannibalism and intraguild predation (IGP). The
dragonfly Anax junius is a species that migrates and often assumes the role of top-
predator in fishless ponds. These attributes make A. junius an ideal species for
addressing the influence of migration on population size structure and local
population/community dynamics. We outline experiments with A. junius and other co-
occurring odonate larvae evaluating these effects.
Section I tests: a) the effects of size variation on cannibalism in paired A. junius
larvae and the likelihood of cannibalism within and between cohorts of A. junius;
and b) the effects of size-structure and temperature, two seasonally variable
factors, on cannibalism in populations of A. junius larvae.
Section II tests the effects of population size-structure in a top predator (A. junius)
on: a) the survival of intermediate predators and shared prey in a three species
IGP system; and b) the relative contributions of density mediated interactions and
trait mediated interactions on risk reduction in a three species IGP system.